A Micromechanical Constitutive Damage Model for Use with Computed Tomography Data

A micromechanical constitutive damage (MCD) model, which incorporates an elastic-viscoplastic matrix, fiber-matrix debonding, residual stresses and fiber packing geometry, will be developed for use with metal-matrix composites. The MCD model will incorporate continuum models of fracture and fatigue at the local fiber-matrix level. Tools will be developed to incorporate computed tomography data into the model. The model will be used in simulations that will help to increase understanding of how cracks at this level propagate and what material parameters are helpful in controlling fatigue crack growth.